Research on School/Science Center Linkages

The Association of Science-Technology Centers (ASTC) is requesting $50,000 to investigate and report on education activities linking science centers with schools. The research will examine the nature and levels of service currently provided by science centers, and produce a report that describes the current status with an emphasis on understandings that provide insight for program planning. The study will gather information from both museums and schools and museums where collaborative efforts are not occurring to investigate the barriers that have discouraged linkages. ***